U.S.-Switzerland Cooperation on Solar Radiation Modeling andMeasurement

This award supports Professor Richard Perez of the State University of New York at Albany to continue a very productive research collaboration in atmospheric physics with Professor Pierre Ineichen of the Applied Physics Group of the University of Geneva, Switzer- land. This international collaboration builds upon and enhances his ongoing and planned domestic research. Specific objectives for their joint research are the further improvement of solar radiation conversion models and the modelling of sky luminance angular distribution. They are also committed to the collaborative acquisi- tion, quality control and analysis of radiation data as a contribu- tion to the International Daylighting Measurement Program of the World Meteorological Organization. This research links and enhances U.S. and Swiss research dealing with the measurement and modelling of sky and ground reflected solar radiation. It has produced valid models to convert routine solar radiation measurements into quantities suited to various daylighting and solar energy applications. A better understanding of the nature and impact of ground reflected radiation will aid in the structural design of energy efficient buildings.